Research Initiation Award: Resonating Anisotropic Solids: Novel Elastic Constant Measurements (REU Supplement)

This award is to develop a new and potentially powerful method for the determination of elastic constants of solids. The method is versatile and can be applied to anisotropic cylinders, spheres and single crystals.